Database for Experimental Study of Frequency and Structure in Aphasic Language Production

Menn, Jurafsky, Ramsberger, Holland
98-18827

ABSTRACT

Frequency and Structure in Aphasic Language Production: Data
Base and Experimental Studies

The proposed work will create a data base of English verbs and the 'frames' they occur in, and start to study whether the properties of those verbs can help to explain some of the problems of people with aphasia (language impairment after brain damage).

Most action verbs occur in frames where subject is the agent ('She sang'); for others, the subject undergoes the action ('The apple fell'); for others, the role of the subject depends on whether the verb is transitive ('He melted the chocolate'), intransitive ('The chocolate melted'), or passive ('The chocolate was melted'). To understand a sentence, a hearer must understand not only the meanings of the words, but also the roles played by the subject noun and any objects of the verb. The data base will list the frames for several hundred verbs and the frequency of each frame in spoken and written text.

People with aphasia have difficulty understanding and/or producing spoken and written language. If we understood these disorders, we would know more about how the brain stores and processes language, and we might also be able to help people with aphasia. The data base will be used in designing studies of how people with normal and impaired language understand and create sentences.